Mathematics Across the Curriculum

A thorough integration is being conducted of the study of mathematics with courses in physics, chemistry, geology, biology, social science, economics, art, music, philosophy, computer science, architecture, medicine, engineering, and literature. Engaged in the project are faculty representing these disciplines at a large number of institutions. Materials are being developed that will be designed for use in conjunction with other texts, as independent reference materials, and as basis for interdisciplinary courses. Support materials for faculty, including documented software, online materials, and videotapes, are being developed. The project is expected to result in fundamental changes at the institutions in the project. In addition, through the materials being developed and a series of intensive summer workshops, the project will benefit faculty and institutions other than those directly involved in the project.